Modernization of an Undergraduate Biochemistry Laboratory

The field of biochemistry has advanced significantly in the last decade. Much of the progress is directly attributable to the development of techniques with greatly enhanced power of resolution and speed of analysis. Integration of computer-assisted data collection and data analysis capability in modern equipment has further revolutionized the conduct of biochemical experimentation. The Mount Holyoke faculty provides a rigorous biochemistry curriculum with heavy emphasis on laboratory experience -- one that is regularly reviewed and updated. Thus in the upper-level biochemistry courses, the lecture coverage in general has kept pace with the rapidly advancing field. In contrast, the laboratory exercises, although sound and current in design, had been poorly implemented due to old instrumentation. This award provides funds for major equipment acquisitions needed to drastically upgrade the laboratory facility. The improved facility makes possible the rigorous probing of experimental questions by modern means of analysis. Furthermore, the use of computer-enhanced analytical capability is being emphasized. The College enjoys an enviable record for producing women scientists -- a record that should be further enhanced through this project.